Unexpected Points and Unlikely Intersections

One of the oldest kinds of problems in mathematics is to find the integer solutions to a Diophantine equation. This type of equation, named for Diophantus of Alexandria in AD 300, is a polynomial equation with integer coefficients. Some Diophantine equations were solved in antiquity, but others are much harder, and were only solved in the late 20th century. There are still more that remain unsolved to this day. This project will focus on a state-of-the-art method for solving Diophantine equations known as “quadratic Chabauty,” which has proved remarkably effective when all other known methods do not succeed. The project will analyze the quadratic Chabauty method’s failure: in particular, the research will examine how frequently or rarely the method fails, and the geometric reasons behind failure. The new understanding gained will inform further development of quadratic Chabauty algorithms, enabling certifiably correct solutions to Diophantine equations in many new cases. Graduate and undergraduate students will be advised on research related to the project’s goals. The project also includes conference organization and the development of educational resources.

More precisely, the quadratic Chabauty method is one of the leading techniques for determining rational points on algebraic curves, and proceeds by producing p-adic functions that vanish on the rational points. When the method produces two or more such functions, a dimension-counting heuristic suggests that the method should directly cut out the set of rational points. However, large-scale computations have produced many examples where the output of the quadratic Chabauty method contains extra unexpected irrational points, even in the regime where the dimension heuristic applies. The principal aim of this project is to investigate why these points appear, and to relate this phenomenon to the geometry of torus-torsors over abelian varieties, which are known to be linked to quadratic Chabauty by work of Edixhoven and Lido. This perspective exposes connections to the theory of unlikely intersections, and a second part of the project will involve studying unlikely intersections problems in these torsors that are suggested by the method. The principal investigator will also use this viewpoint to give a purely geometric reformulation of quadratic Chabauty using the cubical structures of Breen and Moret-Bailly, and thereby to give a new unifying perspective on the various versions of quadratic Chabauty that exist in the literature.